NSF-Experimental Systemic Initiative Supplemental Proposal

93-53661 Powe NSF-Experimental Systemic Initiative Supplemental Proposal The Mississippi NSF-EPSCoR Project has completed its first year of the Advanced Development Program. The advanced program, designed with individual campus components interacting as clusters in the broad areas of chemistry/materials science, is successfully addressing barriers to research in the state by combining resources across institutional lines. Collaboration among faculty and students has resulted in more faculty and industry exchanges, has increased research activity among the EPSCoR investigators, and has strengthened undergraduate and graduate instruction in the departments housing the EPSCoR components. This Experimental Systematic Initiative proposes to enhance the professional development of faculty, student development at the undergraduate and graduate levels, education, and knowledge transfer and interaction with industry. It will provide funding to allow faculty and students the opportunity to interact with experts in their areas of research through travel and through seminars and workshops with leading scientists. The lack of opportunity for such activity has been identified as one of the barriers to research in the state. This proposal addresses three of the objectives of the Mississippi Advanced Development EPSCoR Program: (a) to create a critical mass of scientists by implementing inter-institutional links; (b) to strengthen the scientific community by working with other ongoing programs and by stimulating the human resource pool in the state to become actively involved in the research and education process; and (c) to establish technology transfer to appropriate user groups by developing stronger research links with other research communities and by creating mechanisms for commercial linkages and support of university-based research. The Mississippi EPSCoR initiative is designed to provide for the specific needs of the students and faculty of individual components within the program. These activities target faculty who will either travel to appropriate industries or participate in campus seminars conducted by invited scientists and consultants. They also target students involved in the EPSCoR research as well as students at other universities in the state and region. The seven enhancement designs are summarized as follows: - Faculty interaction with corporations involved in related research in and involvement in technical meetings on polymeric adhesion and composite materials; - Faculty interaction with corporations and laboratories dealing in composite fabrication and in short courses in stress analysis; - Faculty interaction with corporations and laboratories for knowledge exchange in non-destructive evaluation (NDE), in development of numerical models simulating NDE processes, and in analysis of ultrasonic signals; use of external consultants with expertise in ultrasonic acoustic signal processing; - A three-day symposium and workshop for state and regional investigators and students with leading scientists in state-of-the-art solution, solid state and micro- imaging nuclear magnetic resonance experiments; - Faculty and student travel for professional conferences; planned conference on computational chemistry with recognized speakers; - Undergraduate research opportunities for visiting students; research assistance for new EPSCoR faculty with competence in physical chemistry of surfaces; - A series of ten seminars with invited scientists addressing spectroscopic interrogation of transient species in chemical and biological systems for faculty and graduate students.